Measurement and Prediction of Damage in High Strength Concrete Due to Fire Induced Moisture Migration

High strength concrete (HSC) is increasingly being used in numerous types of structural systems, however its performance when subjected to fire poses unique concerns. In particular, the very low permeability of HSC can make it especially prone to spalling that is induced by moisture migration. This research will focus on experimentally measuring internal pore pressures in heated HSC elements, on experimentally measuring key material parameters that affect the movement of moisture through heated HSC, and on developing appropriate numeric simulation models. Steady state flow tests will include measurement of intrinsic permeability, relative permeability, and slip flow parameters. Transient heating tests will measure internal pore pressures and strains developed in heated partially saturated HSC elements. Temperature dependency of flow parameters will be examined experimentally. Results obtained from experimental testing will be incorporated into a numeric simulation model so that potential damage mitigation methods can be explored.